Mathematical Sciences: Fifth Cooper Mountain Multigrid Conference; to be held March 31 through April 5, 1991 in Copper Mountain, Colorado

This grant will help fund the Fifth Copper Mountain Conference on Multigrid Methods to be held March 31 through April 5, 1991. The topics of emphasis are hypersonic flow, adaptive methods, large structures, transport processes, particle physics, parallel computation, and large-scale applications software. These topics will be addressed by the invited speakers, in the special sessions and the workshops, and by the panel. Other sessions of contributed papers will also be held. In order to provide the novice with a basic understanding of multigrid and its processes, four one-hour introductory lectures on multigrid techniques will be offered the first morning of the conference.